Analysis of Aircraft Radiometric and Cloud Physics Data obtained during the FIRE-IFO Cirrus Experiment

This research project aims to study the radiative heating rates of cirrus clouds, to assess the uncertainty of these estimates due to our present lack of understanding of cirrus properties and to develop a means for the parameterization of these radiative heating interactions for use in representing cirrus clouds in climate models. The methods to be used is: (i) to analyze the available radiative and microphysical data obtained during the cirrus FIRE-IFO period, (ii) develop models of the radiative transfer through cirrus clouds capable of simulating the aircraft observations, (iii) assess the sensitivity of this transfer to aspects of ice crystal shape, orientation, particle concentration and size, (iv) compare the theoretical and observed broadband fluxes and heating rates, and (v) use comparisons along with other data to formulate and simple model of cloud heating. This work is important because it will lead to improved parameterization of cirrus clouds in climate models.